SBIR Phase I: Enhanced Dielectric Performance from MagiCap (TM) Polymer

This Small Business Innovation Research (SBIR) Phase I project proposes to develop thin films of nanoparticle/polymer composites for use as artificial dielectric materials. These artificial dielectrics have the potential to have high dielectric constants while maintaining the low temperature processing ability, adhesion, and flexibility of polymers. The shape, size, and orientation of nanoparticles in the polymer matrix will be controlled at the nanometer scale in order to tune the particle's behavior as dielectric enhancers in the insulating matrix. Nanoparticles having spherical, cubic, and wire shaped geometry and dimensions in the range of 0.4-100 nm will be dispersed into polymer resin and formed into thin film capacitors for testing.

The commercial applications of this project will be in improved capacitors for the electronics industry. Such practical, high capacitance materials will enable embedded capacitors for printed wiring board applications. In addition, high energy density capacitors are needed for temporary backup power and pulsed power in electrons, hybrid vehicles, and space applications.